Ergodic Theory and Interacting Particle Systems

Abstract

There is a long and fruitful history of interaction between
various branches of analysis and probability theory. This
proposal focuses furthering these connections, both by applying
recent results in probability to analyze dynamical systems, and
using ergodic theory and other branches of analysis, to study
questions in probability. Two probabilistic models which have
seen large contributions from ergodic theory are first passage
percolation and Richardson's growth model. The work in this
proposal aims to apply techniques from ergodic theory to study
questions of coexistence of multiple infections in Richardson's
growth models and the existence of one sided geodesics in first
passage percolation. One proposed application of probability
results to study dynamical systems is the use of domino tilings
the possible ergodic properties of two dimensional subshifts of
finite type. Another is to use recent advances in necessary
conditions for ergodicity of g measures to answer a longstanding
open question about the necessary conditions modulus of continuity
of an Anosov map on the torus which ensures ergodicity of the
corresponding measure preserving system.

Mathematicians have long used probabilistic models to gain
understanding of complex physical, biological and social systems.
Examples of these models include the Ising model to understand the
process of magnetization, random graphs to study the spread of
disease through sexual contact, and Richardson's growth model to
understand the spread of infection. This proposal aims to
contribute to this field by using new techniques in the
mathematical field of dynamical systems to analyze probabilistic
models inspired by physics and biology.